Connections to NSFNET

Foothill-DeAnza Colleges request support from NSF for connection of their campus networks to BARRnet. BARRnet is the midlevel network located in the Bay Area of California. It will provide operations management and information services and it will give Foothill-DeAnza Colleges a 56 thousand bits per second connection to the NSFNET, a high speed (1.5 - 45 million bits per second) National Backbone network. The Colleges needs greater functionality and network speed to be able to access supercomputers, libraries, and make file transfers along with being able to implement a more reliable mail system. Students and faculty research will benefit from the link. This is also a unique opportunity for the schools to explore innovative educational resources.